Acquisition of a High Field NMR Spectrometer, and its Integration into the Chemistry Curriculum

The chemistry curriculum is being upgraded with the acquisition of a Bruker AC-E 250 MHz NMR spectrometer with a special probe unit allowing detection of resonances from proton, carbon-13, fluorine-19 and phosphorus-31 nuclei under (switchable) computer control. The analytical capability is being extended with the ability to analyze all four nuclei and the data is being processed via a computer. The present laboratory curriculum is being extended with the introduction of new NMR experiments in six courses and with the ability to do 2D analysis of spectral data and appropriate double resonance and pulse techniques in senior thesis research. Students are running spectra on a user-friendly instrument in introductory organic and inorganic. Introductory organic is being converted to microscale syntheses and analyses with the increased sensitivity of the instrument. Senior thesis research is being facilitated with the new capability. The grantee is more than matching the award from non-Federal sources.